Thin Layer Immobilized Liquid Membranes for Gas Separations

The use of semi-permeable membranes to separate components of solutions, or fluid mexture, has become an accepted technology during the past 20 years for many different applications including important processes such as water purification and kidney dialysis. The key to success with this separation method is a markedly different permeation rate for the components of interest. One way to achieve the desired membrane characteristics is to use a membrane barrior made up of a liquid supported by a porous solid. When the solid is in the shape of a hollow tube, there are system advantages over using separator sheets.